Mathematical Sciences: Actions of Abelian Groups and Construction of Automorphic Forms

9404136 Katok The scope of research entails the study of the dynamics of Anovsov actions via hyperbolic automorphisms and spanning sets for automorphic forms on symmetric spaces. Another component of the reseach is number-theoretic in nature and entails the study of non-holomorphic Maass-Hecke cusp forms over Heegner points. ***